Workshop on "Research Needs in Power System Operations and Planning" held in Atlanta, GA - September 5-8, 1989

The secure, reliable, and economic operation of the national electric power systems is of great importance to the national economy. Increasing power systems complexity, coupled with the need to reduce production costs, results in escalation of complexity of the problems facing the power industry. Consequently, it is necessary to continuously reevaluate present methods in operations and planning, and to define research needs in order to pave the way for the innovative approaches required by the increasingly challenging problems. The scope of this workshop is to bring together researchers in Power Systems Operations and Planning and to provide a forum for discussions of research needs. It is expected that the workshop will define present state of the art and research needs.